Workshop: International Workshop on Bio-inspired Methods and Large Scale Structural Monitoring; Tokyo, Japan; July 11-12, 2010

This project will support the travel of US young researchers and students to participate in the International Workshop on Bio-inspired Methods and Large Scale Structural Monitoring to be held in Tokyo, Japan on July 11-12, 2010. The monitoring of large civil infrastructure systems such as bridges, building, pipelines, etc. requires large sensing network and extensive sensor data processing. The biological systems are now known to employ highly sophisticate sensors and data processing to maintain their operation almost effortlessly and thus much can be learned from these systems to manage and monitor large civil structures. The focus of the workshop is to identify the high priority emerging research topics that can be pursued to develop bio-inspired monitoring systems for large scale civil infrastructure systems. It will also identify the collaborative research topics and mechanism that can be pursued by researchers to leverage the resources of different countries. The workshop will facilitate the exchange of ideas, research data, facilities, and resources among the international researchers to address the pressing research issues of common interest in structural health monitoring. The program includes a strong participation of young researchers and graduate students.